Engineering Technology Instrumentation Laboratory Improvement

This project supports the engineering technology program at this institution by enhancing the instrumentation laboratory. Previously existing CAD equipment is linked to compatible pneumatic and hydraulic test equipment so that students experience state-of-the-art industrial instrumentation and feedback control systems. The lab improvement is achieved through the acquisition of Festo Pneumatic and Hydraulic trainer packages; FESTO Programmable Controller; and NIDA Rotating Machinery and Synchro/Servo training packages. This award is being matched by an equal sum from the grantee.